Integrated Geochemical Analysis and Numerical Modeling of Hydrothermal Processes in the Alta Contact Aureole

9903274
Bowman
This project will investigate, using an integrated geological,
petrological, geochemical, and numerical modeling approach, fundamental
processes of fluid flow, heat/mass transport, mineral reaction, and
fluid-rock interaction associated with contact metamorphism in the Alta
Stock thermal aureole, Alta, Utah. The objectives of the study are to: 1)
map the spatial patterns of fluid flux and metamorphic temperatures in the
marbles of the Alta Aureole using well-established geochemical (oxygen,
carbon, strontium isotopes, boron concentrations) and petrologic tracers;
and 2) develop improved numerical models of energy/mass transport and
fluid-rock reaction which incorporate the effects of fluid production (in
both intrusion and wallrocks), mineral reaction, transient changes in
permeability of the wallrocks, and variable igneous contact geometry. The
mapped patterns of metamorphic temperatures and geochemical alteration will
be simulated with these numerical models to place quantitative constraints
on: 1) the geometry, flux, and timescale of fluid flow in the aureole; 2)
the permeabilities and permeability distributions that produce the observed
patterns of fluid flux; and 3) the impacts of reaction and exchange
kinetics on processes of fluid-rock interaction. In particular, we will
investigate the impacts from fluid production, transient changes in
permeability, and from igneous contact geometry on flow patterns and fluid
fluxes in this contact metamorphic hydrothermal system. The computer codes
developed, and the new insights generated in this study of the Alta aureole
will also be applicable to fluid flow and processes of fluid-rock
interaction in other types of crustal hydrothermal systems.